The Experimental Nuclear Physics Program

9403876 Klein Pion absorption experiments will be completed at the PSI lab in Switzerland, focusing on multiparticle reaction mechanisms (through activities of the LADS collaboration)and medium modifications of effective interactions (through polarized target studies). Research will be carried out in support of mounting spin structure function measurement programs at SLAC and CEBAF. At CEBAF this will include design and construction of drift- chambers for the CEBAF CLAS detector. ***